Automated Single-Crystal Diffractometer Acquisition

A Siemens P4 X-ray diffractometer equipped with low-temperature capabilities will be acquired for the research and teaching program at Delaware State University using funds from the Academic Research Infrastructure Program. The research areas to be studyied are: 1) inorganic and organometallic compounds, mineral physics, and materials science. Specifically, topics to be studied include: structure-reactivity relationships in organic molecular crystals, antiviral applications of oxometallic complexes, and the high pressure phases of mantle minerals using hot-pressing techniques. A X-ray diffractometer will low temperature capabilities will be utilized in the study of structure-reactivity relationships in organic molecular crystals, antiviral applications of oxometallic complexes, and the high pressure phases of mantle minerals.